Antarctic Ice-Sheet Stability on a Deforming Bed: Model Studies

A three.year effort is proposed to continue development and testing of a fully coupled ice.water.till model for basal processes of wet.bedded ice sheets. At present, lack of an accepted bed model is the major difficulty in predicting how modern ice sheets will respond to possible changes in their boundary conditions caused by anthropogenic climatic change. If model development and testing here are successful, the model will be used to assess West Antarctic ice.sheet stability and its effect on future sea levels, and to study other present and past ice sheets and their deposits.//